REU Site in Physics at the University of Connecticut

*** 9732276 Stwalley The summer undergraduate research program (an NSF REU Site) will continue in the Department of Physics at the University of Connecticut. This summer program will expose a diverse group of talented undergraduates to an exciting research environment and inform them in weekly seminars about the frontiers of physics and about careers in physics. Departmental social gatherings, a final poster session for presentation of research results, and assignment of a graduate student mentor as well as a faculty advisor are included to enhance the participants' sense of community with the other members of the department. We plan to focus on a balanced program attracting on a nationwide basis talented women and both underrepresented and other minority undergraduates, especially from primarily undergraduate institutions with less access to a comprehensive research environment. ***